RUI: Experiments in Low Energy Nuclear Physics and Nuclear Astrophysics

0072314
Hinnefeld
This grant supports the involvement of the PI and undergraduate students in a program of research in experimental nuclear physics. The proposed experiments include measurements of nuclear properties, including lifetimes and decay branching ratios, that are important for understanding the synthesis of elements heavier than oxygen in explosive stellar environments, as well as
investigations of the effect on nuclear reaction dynamics of the
exotic structure of the nucleus helium-6, a "neutron skin"
nucleus. Experiments will be carried out at the University of
Notre Dame, using the FN Tandem Van de Graaff accelerator and
TwinSol radioactive beam facility, and at the CYCLONE radioactive
beam facility in Louvain-la-Neuve, Belgium. In addition to
contributing to an improved understanding of nucleosynthesis and
of the reactions dynamics of neutron-skin nuclei, this project
will provide an opportunity for undergraduate students at Indiana
University South Bend to become actively involved in exciting and
important research. Support is also provided in this grant for
these undergraduates to attend regional scientific meetings, where
they will present their results.